SGER: Index Switchable III-nitride Planar Lightwave Circuits for Optical Communications

0532610
Hui

Over the last decade, III-nitride materials have occupied the central stage in the
semiconductor research with a predominant focus on applications as photonic devices
operating in the visible and UV regions. The PI systematically investigated the properties of IIInitrides operating in the near infrared wavelength region, including refractive indices, optical
losses, birefringence and temperature sensitivities. He has developed various photonic
devices based on AlGaN/GaN planar lightwave circuits, such as waveguide couplers and
array waveguide gratings (AWG) operating in 1550nm wavelength.

Since III-nitrides are semiconductor materials, carrier injection can be used to modulate the
refractive index and to change the phase delay of the waveguide. Adding an electrode on
each interference arm of an AWG made by AlGaN/GaN p-i-n heterojunction, for example,
could make a wavelength demultiplexer switchable at high speed. Obviously, carrier-induced
index change is a key step toward a real functional device for high-speed all-optical packet
switch. He proposes to design, develop and optimize AlGaN/GaN-based p-i-n heterojunction
structure in planar lightwave circuits to realize carrier injection and index tuning. The
theoretical work will be focused on the p-i-n heterojunction structural design and the
efficiency of carrier-induced index change, including bandfilling, bandgap-shrinkage and
free-carrier absorption. The experimental work will concentrate on the fabrication,
characterization and optimization of the AlGaN/GaN-based p-i-n heterojunction waveguide
devices.

The intellectual merit of this proposal lies in the introduction of a new material group for
applications in optical communications. Fast tuning of refractive index by carrier injection is
the key to realize high-speed optical switch.

The broader impact of this proposal is two-fold. From the application point of view, the
result of this research will enable a wide array of applications, which will have enormous
impact in optical communications. From the material science point of view, a much greater
and fundamental understanding will be gained for III-nitride semiconductors in terms of their
optical and physical properties.

The unique properties of III-nitrides make them attractive for guiding and switch of light in
the infrared wavelength region for optical communications, which may allow the creation of
photonic devices with unprecedented properties and functionalities.